Interfacial and Turbulent Mass Transfer of Monomers into Latex Particles Stabilized with Mixed Surfactants and Water-Soluble Polymer

Research Summary: Mass transport of small organic molecules through well characterized interfacial films, adsorbed on latex particles, will be studied. Interfacial films of the "condensed" type, those with strong interactions between adsorbed molecules such as the sodium hexadecyl sulfate/sodium hexadecyl alcohol mixed surfactants or sodium lauryl sulfate at high ionic strength, will be used. The effect of agitation on the mass transport will be also studied. The proposed work is aimed toward the understanding of mass transport through tightly packed molecules in the interface. Most studies have been on liquid drops, where the transport resistance was due to the reduced liquid recirculation near the surface of the drop. In this work the substrate is a polymer particle and recirculation effects are absent. The mass transport resistance must than depend on the barrier properties of the interfacial film. Technical Impact: In commercial latex manufacture, colloid stabilization is often based on mixed stabilizers, ionic/nonionic surfactant mixtures, which often lead to interfacial layers of tightly packed molecules. Information about the mass transport through such a phase in the turbulent agitation regime is needed for the effective kinetic modeling of commercial reactions. Such information is currently not available. This work will yield some of this missing information.